Interactive Accessibility: Breaking Barriers to the Power of Computing

9303152 Ehrich This award provides infrastructure for the support of laboratories for research in interactive computing, especially as it relates to human/computer interface studies. The principal investigators are drawn from the department of Computer Science and the department of Industrial and Systems Engineering. In addition, there are substantial collaborations with the Naval Research Laboratory and the Blacksburg Electronic Village. The laboratories are a Usability Methods Research Laboratory, an Interaction Technology Laboratory, and an Information Access Laboratory. This award is being jointly funded by the Cross Disciplinary Activities (CDA) Office and the Information, Robotics, and Intelligent Systems (IRIS) Division. The Instrumentation for the laboratories is being supported by CDA while the research is being supported by IRIS. The specific research performed in the laboratories includes identifying and over coming usability and conceptional barriers to computing, the development of evaluation methodologies for determining the effectiveness of human/computer interfaces, development of environments for performing human/computer interface experiments, the development of expert-based information systems, the development of systems for access to computers for disabled users, and development of systems for access to computers for disabled users, and development of several domain based interfaces for large data base systems.